Postdoctoral Research Fellowships in Plant Biology

This is an individual award in the Postdoctoral Research Fellowships in Plant Biology Program for 1988. The Fellow will conduct research on "Translational Control of Protein Synthesis in Plants" in the laboratory of Dr. Justin K. M. Roberts, University of California, Riverside, CA. The award provides training in research in a critical area of plant biology to a promising young scientists. It should help to contribute to the future vitality of the Nation's scientific effort and lead to advances in our knowledge and understanding of the basic biology of plant systems.